Calculators in the Calculus Curriculum

Calculus students are benefiting from this joint effort involving universities, two- and four-year colleges, high schools, and high technology industry to develop and implement a new calculus curriculum which makes integral use of symbolic/graphical calculators. Text materials appropriate for the equivalent of three semesters of calculus are being produced; these materials are being class tested in a variety of instructional settings; workshops are being planned to provide continuing instructional support for teachers using the curriculum materials and symbolic/graphical calculator.